Drosophila Mitotic Mutants

This laboratory has identified Drosophila mutations which disrupt the release of sister chromatids at anaphase and the process of cytokinesis in mitosis. Experiments proposed will examine in molecular detail the products of two genes, "rough deal" (rod) and "spaghetti squash" (sqh), whose proper functioning are essential for the successful execution of anaphase and cytokinesis, respectively. The following studies are proposed: 1) To characterize the rod and sqh proteins by immunocytochemsitry and trace their intracellular distribution and behavior during mitosis; 2) to determine the role of phosphorylation of the sqh gene product in regulating cytokinesis; 3) to dissect the function of the sqh gene product through classical and in vitro mutagenesis. The process of mitosis is fundamental to all eukaryotic organisms. It has evolved to deliver a complete complement of chromosomes to each daughter cell. Two critical and, as yet, poorly understood late events in mitosis are the release of sister chromatids at anaphase and the process of cytokinesis. This research will take advantage of two Drosophila mutations which distrupt these processes in specific ways. The identification and analysis of the products of these two genes should contribute important new information on the molecular mechanisms underlying mitosis.